Combinatorial Commutative Algebra and Integer Programming

This research program concerns questions at the intersection of
commutative algebra, integer programming, and discrete geometry. The
link between these fields is made via toric ideals and their Groebner
bases. The first set of questions concern the characterization and
construction of toric initial ideals without embedded primes. Answers
to these questions will provide new structural results in the theory
of integer programming via the classical technique of group
relaxations due to Gomory and will extend recent work in this area by
Serkan Hosten and the proposer. The second set of questions concern
the toric Hilbert scheme, a parameter space for all polynomial ideals
with the same multi-graded Hilbert function as a given toric ideal. A
central open question about these schemes is whether they are
connected. The proposer will work with Diane Maclagan on this
connectivity question, building on their recent construction of a
graph on the monomial ideals of the scheme which is connected if and
only if the scheme is connected.

Over the past decade, the proposer has contributed to the development
of several new theories in discrete optimization using algebraic
techniques and has worked on the application of the resulting,
non-traditional algorithms to practical problems. The research that
has contributed to these theories brings tools from algebra,
combinatorics, optimization and discrete geometry to bear on problems
from all of these fields. The application of algebraic techniques has
led to new understanding in the field of integer programming, a branch
of discrete optimization, but tools and ideas from optimization have
also led to new results in algebra. This interplay of ideas and
techniques has shed light on questions from each of these areas and
promises to lead to greater insight and advancement. The proposer
works with students on some of the computational aspects of the
research and plans to involve students in the development of software
that implements these algorithms. The proposer is also interested in
curriculum development in subject areas related to this research at
the University of Washington.